Undergraduate Computer Integrated Design Laboratory

This project establishes an undergraduate computer integrated design laboratory. Closely coupled to the laboratory is the development of a unified education program which will be introduced as early as possible in the curriculum for maximum benefit in the majority of courses where computer graphic simulation gives insight into complex phenomena. The equipment includes six Interpro workstations and associated software.